MRI: Acquisition of Equipment for Telecollaboration, Telepresence and Design

EIA-9871440 Risenfeld, Richard F. Barr, Alan H. University of Utah MRI: Acquisition of Equipment for Telecollaboration, Telepresence and Design This is a request for major research instrumentation to significantly augment the ongoing telecollaboration and telepresence research effort spanning all five sites (Brown, Caltech, Cornell, UNC Chapel Hill and the University of Utah) of the STC for Computer Graphics and Scientific Visualization. Telecollaboration and telepresence are driving themes for the STC that stimulates and builds on research of four core research areas of modeling, rendering, interaction, and performance. The goal is to use projection display technology to "control light at every square millimeter, every millisecond" to create shared immersive environments that are sufficiently realistic to give the user a sense of "being there." Some aspects of this goal can be implemented by acquiring or building special-purpose research instruments and other aspects only by conducting longer-term research on more powerful general-purpose research immersive sensors and displays. This research will influence the development of advanced telecollaboration and telepresence, which is expected to become as ubiquitous in the coming decade as single-user 2D windows-based computing is today. The set of requested instruments are categorized in terms of three research areas: networking, telecollaboration and telepresence.